Presidential Young Investigator Award: Studies in Macro and Financial Economics

This award provides support to Dr. John Campbell under the National Science Foundation's Presidential Young Investigator Awards program. The objectives of this program are to provide research support to the Nation's most outstanding and promising young science and engineering faculty. The awards are intended to improve the capability of U.S. academic institutions to respond to the demand for highly qualified science and engineering personnel for academic and industrial research and teaching. This award will allow the investigator to pursue his research in the study of macroeconomics, financial economics, and applied econometrics. There are several major broad research questions that are central to his research interests. One issue is what determines long-term asset prices. Another is what determines aggregate savings behavior. A third question is what are the long-run implications of business cycle fluctuations. All of these are extremely important areas for research with important policy implications for the U.S economy.